SHF: Medium:Performance Analysis and Optimization for Logic Rule Engines

Rule systems are increasingly used in areas ranging from Program Analysis,
Semantic Web, Security Frameworks, Sensor Networks, Cognitive Radio, and
Disruption-tolerant Networking, each with its own demands for efficiency
and scalability. Advances in these areas will lead to a new generation of
robust and secure applications that control devices on which human safety
and even lives depend, supply with critical information, and help people
make informed decisions by pulling together distributed Web-centric
resources, analyzing them, and automating complex information-bound tasks.
However, existing implementations of rule systems are not sufficiently
scalable and have been shown to vary widely in performance. To make the
above vision of next generation robust applications a reality, one must
understand the performance characteristics of rule systems and develop
scalable optimization and analysis techniques for them. Although advances
have been made in improving performance of rule systems, the problem
remained extremely challenging and poorly understood both theoretically and
implementation-wise.

This project will develop a comprehensive framework for rigorous
understanding and optimization of rule systems. The approach is based on
precise cost calculations and global program transformations, and it
combines and extends techniques from database query optimization, compiler
optimization, and recursive query processing. It includes: (1) techniques
for generating logically equivalent but more efficient programs; (2) cost
models and analysis for generating parameterized cost formulas for the
running time and space usage of rule programs; (3) techniques for
estimating parameters of the cost formulas; (4) heuristics for searching
the exponentially large space of logically equivalent rule programs to find
the ones with the best predicted time, space, and tradeoffs; and (5)
implementation of the strategy as an optimizer for the widely used,
open-source XSB Logic Programming System. The method and implementation
will be evaluated using applications in Program Analysis and Semantic Web.